A Novel Technique for Remediating Fractures and Fissures

9412942 Islam In the environment, natural cementation of geological formations occurs constantly over the geological time due to physical, chemical and biological reactions. The research launches a plan to develop a new technique of microbial cementation of fissures or fractures of buildings and monuments. Laboratory-scale experiments are to be used in order to optimize parameters that govern the microbial cementation process. Laboratory results will then be scaled up using a numerical simulator and a design for field application will be completed.